Engineering Graphics Laboratory Improvement

This project provides greatly increased learning opportunities for students in the areas of mechanical, electro-mechanical, and computer-aided design. A key aspect of this project is the acquisition of ten Hewlett-Packard computer workstations with UNIX operating environment, Parametric Technology's Pro-Engineer application software, and Hewlett-Packard's Printed Circuit Design Software. This equipment enables the students to solve real-world design problems relating to function, part fit, and manufacturing limitations that, because of time limitations, require three dimensional methods. Students receive a greater understanding of design principles through direct visualization of both the problem and its possible solutions. The added capability of this new software/hardware allows the student to spend more time in critical and analytical thinking, and less time documenting and drawing the design. The award is being matched with a greater amount (130 percent) by the principal investigator's institution.